Antarctic Meteorological Research Center

The Antarctic Meteorological Research Center (AMRC), one of three research centers in the Science and Engineering Technology Center at McMurdo, is a resource for meteorological research and a test bed for improving operational synoptic forecasting. The Man- Computer Interactive Data Access System (McIDAS), a versatile computer-based system for organizing, manipulating, and integrating antarctic environmental data will form the basis of AMRC. It will capture the flow of meteorological information from polar orbiting satellites, automatic weather stations, operational station synoptic observations, and research project data. It will also receive environmental data products, such as weather forecasts, from outside Antarctica, and will act as a repository for existing archived data bases. Phase I, to begin in the 1992-93 summer season, consists of the installation and operation of work stations that can manipulate and display AVHRR data based on the existing satellite imagery acquisition system. Phase II will consist of the acquisition and integration of a system that will provide data collection, data display and archiving, scientific applications, network communi- cations, and remote user access. The McIDAS system, developed at the University of Wisconsin in the mid-1970's, ingests meteorological data from various sources: standard synoptic observations, radiosonde profiles, satellite- based visible and infra-red imagery, atmospheric profiles inverted from multi-spectral scanning sensors, and non-standard data such as TOMS ozone data, SAR sea ice information, and the AWS network observations. The system automatically registers, calibrates, and locates (by geographical coordinates) the ingested information and allows a user at a work station to manipulate the data base. The manipulations include sectorization, false color, enhancements, brightness stretching, overlays, looping, differencing, and are quite definitely keyed to synoptic meteorological research and weather forecasting. The antarctic system is based primarily on data streams provided by polar orbiters (AVHRR/HRPT and DMSP), since the look angles from geostationary satellites are so extremely low. The full utilization of McIDAS capabilities in producing meteorological data products useful in both forecasting and research will include a data transfer and communications capability to, for example, the Australian Bureau of Meteorology (ABOM), the University of Wisconsin Space Science and Engineering Center (SSEC), the Fleet Numerical Oceanography Center (FNOC), Monterey, and the European Center for Medium Range Weather Forecasts (ECMRWF), Reading, U.K.